Arctic System Science Data Coordination Center At NSIDC

ABSTRACT The National Snow and Ice Data Center (NSIDC) proposes an ARCSS (Arctic System Science) Data Coordination Center at NSIDC to integrate management of data for LAII, OAII, GISP2. PALE, and the emerging Arctic Archaeology component. In this three-year view, NSIDC envisions a distributed set of ARCSS data archives with data sets held in appropriate centers (including NSIDC), linked by NSIDC's "front end" coordination to ensure that ARCSS-funded researchers can easily obtain required data, and to guarantee archival of data they collect during ARCSS. The "front end", or Data Coordination Center, will produce these results: a. ARCSS and other Arctic data sets and products of importance to ARCSS science priorities will be catalogued and described in a published ARCSS Catalog and in the Global Change Master Directory; b. ARCSS and other Arctic data sets and products will be easy to access and to use for research; c. ARCSS data sets will be coordinated and managed within the framework of established and emerging U.S. and international data systems and centers; d. A data accession and archival system for ARCSS data sets and products will be established at NSIDC; e. Guidelines for data formats and documents, including GIS and model output data sets, will be developed and promulgated within the ARCSS aommunity; f. Tailored data products, on CD-ROM, diskette, and via electronic file transfer will be delivered to ARCSS investigators; g. NSIDC will work with the ARCSS Data Management Working Group, ARCSS Modeling Working Group, and ARCSS Science Steering Committees to identify data priorities for ARCSS- funded research; h. Exchange of information about data sets and data-related activities among members of the ARCSS community will be facilitated by an electronic bulletin board, newsletter, and information clearinghouse at NSIDC; and i. Initiate work on a geocryological database by capitalizing on recent opportunities to obtain da ta from the former Soviet Union.